Workshop: Symposium on Intelligence and Security Informatics

EIA- 0317269
Hsinchun Chen
University of Arizona

Title: NSF Workshop: Symposium on Intelligence and Security Informatics

This NSF Workshop: Symposium on Intelligence and Security Informatics aims to provide an intellectual forum of discussions among previously disparate communities: academic researchers (in information technology, computer science, public policy, and social studies), local, state, and federal law enforcement and intelligence experts, and information technology industry consultants and practitioners. The workshop will bring together noted informatics, computer science, and policy researchers and progressive leaders in law enforcement and security communities to engage in productive dialogues and explore avenues of collaboration. The workshop will help identify promising computer science and informatics techniques and methodologies for national security applications, and help develop close and productive partnerships between researchers and local and federal law enforcement practitioners. The Symposium on Intelligence and Security Informatics will solicit high-quality research papers of relevance to intelligence and security research, which will be peer reviewed by both researchers and practitioners.